REU Site in Archaeology

This award provides funds for an REU Site in Archaeology hosted by Davidson College. The program provides instruction in archaeological research methods to students joining the Athienou Archaeological Project in Cyprus. Ten students will (1) receive instruction in survey and excavation techniques, record keeping and data management, and artifact analysis; (2) participate in seminars taught by experts on archaeological method and theory and the cultural history of Cyprus; (3) visit prehistoric and historic sites on Cyprus; (4) plan and complete an independent research project; and (5) live in Athienou and learn about life in modern Cyprus from the villagers. Students will master the methods of archaeological field research, including new `high-tech` approaches to data collection and analysis, and gain a better understanding of archaeological theory. This award contributes to the Foundation's continuing efforts to attract talented students into careers in science through active undergraduate research experiences.